2022 Graduate Climate Conference (GCC); Eatonville, Washington; October 28-30, 2022

This award supports the 16th Graduate Climate Conference (GCC), planned for 28-30 October 2022 at the Charles L. Pack Conference Center. The conference is annually and alternates between Woods Hole the University of Washington.

The GCC is an interdisciplinary climate conference organized entirely by and for graduate students. It provides a discussion forum for students conducting research on climate in a variety of disciplines including atmospheric dynamics, ocean dynamics, ocean biology and chemistry, atmospheric chemistry, climate dynamics, paleoclimate, and human dimensions of climate variability and change. The meeting is intended to help students familiarize themselves with the breadth of climate science, gain exposure to the enormous range of tools available to address climate-related questions, and understand how their research fits into the broader landscape of current climate science. The conference seeks to better prepare graduate students for scientific inquiry in a field that increasingly demands interdisciplinary approaches. Funds provided here support travel and subsistence for 120 students chosen through a competitive process which places emphasis on selecting a cross-section of applicants that reflects the diversity of the next generation of scientists